Basic Issues of the Dynamcis and Radiation of Capillary Discharge Plasmas

Proposal Number: ECS-9713297 Principal Investigator: Jorge Rocca Title: Basic issues of the dynamics and radiation of capillary discharge plasmas In this research, a combined theoretical and experimental program to elucidate the fundamental aspects of the dynamics of capillary discharge plasmas will be performed.. An increased understanding of the mechanisms that lead to the remarkable uniformity of capillary discharge plasmas and their scaling laws could potentially revolutionize the was in which hot dense plasmas are generated. Capillary discharges can lead to breakthroughs in many important areas including the development of table-top soft X-ray lasers, the development of incoherent extreme ultraviolet source for nanolithography and the channeling of high intensity laser pulses for compact accelerators and for the generation of very strong magnetic fields.